Robert Noyce Teacher Scholarship Program Track 1 at the University of Maryland, College Park, College of Computer, Mathematical, & Natural Sciences – Round 3

This Noyce (Track 1) project aims to serve the national need of recruiting, preparing, and retaining high-quality secondary STEM teachers. Additionally, this project will support 20 undergraduate and 10 graduate STEM Noyce scholars in mathematics, science, and computer science by providing scholarships and stipends, travel funds for attending conferences, and three years of induction support. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in inquiry-based, student-centered instruction and building community.

This project at the University of Maryland, College Park, includes partnerships with Prince George’s County Public Schools (PGCPS), specifically DuVal High School. Project goals include (1) expanding the number of candidates who utilize teacher preparation pathways of the Terrapin Teachers Initiative at University of Maryland by providing the candidates with scholarships and stipends, and (2) improving long-term retention in teaching by providing three years of induction support. We aim to produce 30 highly-qualified STEM teachers in secondary mathematics, science, and computer science teachers over three cohorts. We will enhance our teacher preparation experience by offering one-year, renewable Scholarships ($11,500 each) for undergraduates and one-year Stipends ($23,000 each) for post-baccalaureates to support the completion of our teacher certification programs. We will offer three years of induction support, including online modules, virtual coaching, summer book clubs, in person observations with feedback, and conference support. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) To what extent does financial support through the Terrapin Teachers Initiative at University of Maryland increase the number of students graduating from our STEM certification programs? (b) To what extent do the induction efforts support teacher retention? and (c) To what extent does the Terrapin Teachers Noyce Program prepare STEM teachers along student-centered inquiry-based pedagogies? The results of this project will be disseminated to enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high need school districts.